NSF/FDA SIR: Quantitative Decision Analysis and Utility Assessments for Medical Imaging Technology

ABSTRACT
#1238502
Abbey

This proposal investigates the development and analysis of utility based measures of diagnostic
performance for the purpose of technology evaluation, using screening mammography as an example.
This approach represents an important departure from the standard analysis, which uses receiver operating
characteristic (ROC) curve analysis to obtain area under the curve (AUC) as the study endpoint. The
utility methods confine attention to the most relevant part of the ROC curve. This leads to a
more meaningful measure of performance, and also reduces sources of extraneous variability
relative to effect size, thereby leading to a more powerful statistical design of experiments.